Visionlearning: An Education Web Portal

Interdisciplinary (99)

This project creates public, interdisciplinary science education Web-based instructional modules that combine core, interdisciplinary science lessons with interactive multimedia material, research reports, historical biographies and other excellent Web resources to present students with a high-quality, inquiry-based learning experience. These modules are launched in an education Web portal, Visionlearning, which allows science instructors to combine a custom set of these modules with their own course content,
such as a syllabus, to easily create a personal Web classroom. This project helps to overcome the barriers that prevent widespread use of the Web in science education by providing a content-rich yet fast and easy-to-use system to introduce instructors to educational technology. This project provides free interdisciplinary science Web lessons, promotes faculty use of instructional technology, creates bilingual science resources and quantitatively evaluates all of the resources developed.